Upper Level Undergraduate Laboratory Revision at UCLA

This project is developing a laboratory to house the junior/senior level physical chemistry, instrumental analysis, and polymer science labs. These labs are being developed in concert with other aspects of curriculum revision. The concept for these labs is unique. Laboratory experiments are being grouped into clusters, with each cluster stressing a particular chemical theme and individual experiments stressing a fundamental principle. Students are learning basic chemistry, and yet their experiments will build on each other from one week to the next, and even from one lab course to the next. The flexibility to continuously introduce or phase out experiments and experimental clusters is built into the program.